Summer Undergraduate Research Program in Computer Science and Engineering

The goal of this project is to provide a quality research experience to undergraduate students selected from institutions around Lincoln, Nebraska where research opportunities are limited. A total of 10 students will be selected to participate in this research during the summer of 1990. The primary areas of research for student participants will be in databases, expert systems, algorithms and VLSI design, all of which are areas of faculty strength. Students will participate in lectures, research colloquia, relevant literature search, project selection, technical report writing and oral presentation.